Molecular Thermodynamic Modeling and Dynamic Computer Simulation of Dilute and Micellar Surfactant Systems

A model for size distribution and properties of surfactant aggregations is to be extended to mixed systems. Extensive comparisons with data for the dependence of the behavior with variations in state, amphiphile chain, head group, and solvent type will be made. Molecular dynamics calculation will be extended to mixed surfactant and solubilization cases to describe conformational effects, geometric variations of mixed systems, and positional options of solutes.